D: Computing the Biome

Individuals, industries, societies, and governments want to stay healthy. They need cost-effective systems to detect biological threats and predict future disease outbreaks as early as possible. COVID-19 acutely and painfully demonstrated the impacts of the unpredicted. The goals of this program, Computing the Biome, are twofold: (1) demonstrate an extensible data and AI platform that continuously monitors and predicts biothreats in a major U.S. city, and (2) create a framework for economic sustainability and global scalability of these results, by empowering businesses and advanced science missions to consume predictions and produce valuable consumer apps and breakthroughs.

This team will produce and interconnect novel data streams ranging from kilometer-scale hyper-local weather, to autonomously identified disease transmitting insects (only millimeters in size), to genomically recognized known and novel viruses (only nanometers in size) – demonstrating that cross-cutting continuous data streams for biothreat detection and prediction can be rapidly unlocked. By combining their expertise in ecology, epidemiology, and virology, the team will design new predictive models and anomaly detectors. This project will develop the first of these high-impact AIs focused on predicting mosquito-borne diseases, which are difficult to control and impact over 600 million people per year. More broadly, the resulting data platform will empower development of new foundational methods for use by the AI community – based on real-world data and grounded in the societal challenges of our age.